International Travel Grant: 2010 IEEE/OES South America International Symposium; April 12-14, 2010

The PI requests funding to provide travel and subsistence support for up to six attendees from the U.S. to participate in the 2010 IEEE/OES South America International Symposium. The Symposium will be held April 12-14, 2010 in Buenos Aires, Argentina. It is being co-sponsored by the IEEE Oceanic Engineering Society, Intergovernmental Oceanographic Commission (IOC), UNESCO., Service of Naval Hydrography, Defense Ministry and Nucleus INTELYMEC, Faculty of Engineering National University of Center of Prov. of Buenos Aires. The principal objective of the Symposium is to provide opportunities to exchange research, scientific, and technical information of mutual interest to the U.S. and South America.

The Symposium’s theme ?Climate Change Research and Advanced Technologies" was selected in collaboration with the leadership from the co-sponsoring organizations. It was determined that the main topics during the workshop would include Climate Change, Ocean Observations Systems, Coastal Zone Management and Renewable Energy Techniques.

Broader Impacts

The overarching theme and topics to be discussed represent common areas of needs for both North and South America. Participants will include experts from government, industry and the academic sectors. The Symposium is expected to provide valuable exchange of ocean science and technology research information that adds to the research and educational base of both regions and is applicable in addressing the needs sought.